Student Travel Support for the Seventh Symposium on Networked Systems Design and Implementation (NSDI 2010); April 2010; San Jose, CA

This proposal requests funding to assist approximately 15 US-based graduate students to travel and attend the Seventh Symposium on Networked Systems Design and Implementation (NSDI-2010), which is to be held in San Jose, CA on April 28-30, 2010. The support requested in this proposal will enable the participation of students, especially those from under-represented groups, who would otherwise be unable to attend NSDI-2010.